Methodologies for Analysis of Nucleoprotein Complexes

; R o o t E n t r y F ( C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l 6X 6X + ! " # $ % & ' ( ) * , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e * * n n n n n n n > 1 o T ; > n > n n n n n n n n 4 9509132 Hanna This project uses biophysical techniques to analyze the molecular mechanisms involved in the regulation of gene expression at the level of transcription, which is catalyzed by RNA polymerase. The work is focused primarily on E. coli, which is an ideal model system in which mechanistic studies can be carried out using purified components. Several novel ribonucleotide analogs which are tagged with photocrosslinking, fluorescent, or other tags have been developed in this laboratory. These will be used for analysis of protein-nucleic acid interactions in the E. coli transcription complex, using electron microscopy and fluorescence polarization techniques %%% Interactions between proteins and nucleic acids are important in many cellular functions, including the regulation of gene expression. This project uses biophysical techniques to study how the enzyme RNA polymerase, which is a protein, attaches to the DNA of a bacterium and transcribes the information in the DNA into RNA, which then becomes the blueprint for protein synthesis. *** Oh +' 0 S u m m a r y I n f o r m a t i o n ( $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT 9509132 marcia steinberg marcia steinberg @ 2 @ @ 2 @ Microsoft Word 6.0 1 ; * & * ! ! ! ! ! K @ Normal a b c " A@ " Default Paragraph Font * * * * 4 marcia steinberg \\CLM11\MCBPUB\BIOCHEM\HANNA.ABS @HP DeskJet 500 LPT1: HPDSKJET HP DeskJet 500 D L f , , ! /' ^ }w;/' } d g 2 HP DeskJet 500 D L f , , ! /' ^ }w;/' } d g 2 % % % $ 1 Times New Roman Symbol & Arial " h v\ v\ $#; 9509132 marcia steinberg marcia steinberg ;